Ideas Lab: Synthetic and Artificial Cells

In 2016, the National Science Foundation (NSF) unveiled a set of 'Big Ideas,' 10 bold, long-term research and process ideas that identify areas for future investment at the frontiers of science and engineering. The Big Ideas represent unique opportunities to position our Nation at the cutting edge of global science and engineering leadership by bringing together diverse disciplinary perspectives to support convergence research. This proposal responds to that vision and describes an Ideas Lab on 'Synthetic and Artificial Cells.' Ideas Labs are intensive workshops focused on finding innovative solutions to grand challenge problems. The ultimate aim of this Ideas Lab is to facilitate the generation and execution of innovative research projects aimed at designing, fabricating, and validating synthetic cells.

The ability to design and manufacture synthetic cells has significant implications for the scientific and economic enterprise of the United States. The synthesis of viable cells from non-living molecules and materials can open the door to the production of functional biomaterials and improved biofuels, large scale chemical synthesis, non-silicon-based computing, novel soil engineering, and medical and pharmaceutical advances, to name just a few possibilities. The study of synthetic cells, and of the processes used in their creation, can also provide a window on the origin and evolution of life on Earth and, potentially, provide insight into extraterrestrial life. The aspiration is that mixing researchers who have diverse scientific backgrounds will engender original thinking and innovative approaches that will transform our understanding of cellular processes, the molecular mechanisms that underscore the building and function of systems that reproduce life traits, the self-assembly of life-like systems, soft condensed matter, and the physics and chemistry of life that are needed to design and build cellular components, cells and multicell systems.